Electromagnetic Nuclear Physics at Intermediate Energies

9507412 Napolitano Research will be carried out in high energy electron scattering and photonuclear reactions centered on the study of baryon and meson structure and spectroscopy. Research in these areas will advance our understanding of the quark and gluon structure of these systems. These topics are high priority activities in contemporary nuclear physics. The work will be carried out largely at CEBAF, although some complementary studies will be carried out at the MIT Bates Laboratory and at Brookhaven National Laboratory. Development, construction, and utilization of major state-of-the-art equipment, including Cherenkov detectors and drift chambers for the CEBAF CLAS and SOS spectrometers, is integral to this activity. Education of graduate and undergraduate students and postdocs is a strong component in every aspect of this grant for this Rensselaer Polytechnic Institute group. ***